Minority Graduate Research Honorable Mention - Charles E. Crutchfield

This special award will give Ph.D. student Charles Crutchfield flexibility in pursuing his graduate studies and research initiation in animal gene regulation. This award will strengthen minority research participation in this area.